Tribology of Shape Memory Alloys

9412314 Saka An Exploratory investigation will be made of the tribological behavior of shape memory alloys under an SGER award. Both dry and lubricated sliding test will be conducted on NiTi shape memory alloys with various martensite transformation temperatures. The effects of pseudoelasticity and thermally triggered shape memory on friction, wear, and wear mechanisms will be determined. ***